A Bit-Parallel, Word-Parallel, Massively Parallel Associative Processor for Scientific Computing

Classical SIMD associative processors execute arithmetic in a bit- serial word-parallel manner. Current massively parallel machines also perform bit-serial arithmetic in a fine grain computing environment. This bit-serial property is a limiting factor in increasing processing speeds. A simple but powerful new architecture based on the classical associative processor model is proposed here. By distributing logic among slices of storage cells such that a number of bit-planes share a simple logic unit, bit- parallel arithmetic in a massively parallel environment becomes feasible. For m-bit operands, complex operations such as multiplications execute in O(m) cycle as opposed to O(m2) for bit- serial machines. The simplicity of the architecture enables its implementation using VLSI technology, and hence allows the construction of a word-Parallel, bit-Parallel, massively Parallel (P3) computing system. The main goal of the proposed work is to build an experimental P3 machine which is to be embedded into a heterogeneous supercomputing environment. The need for such architecture and for an actual working prototype stems from a number of applications which cannot be solved in conventional spercomputers. In this proposal, space science applications are outlined as this work is also supported by NASA.